Fully-Time-Resolved (FTR) Cinema-PIV Imaging of the Physics of Subgrid Turbulence

Dr. Driscoll and the Co-PI Dr. Ceccio have developed a time-resolved cinema-PIV(particle image velocity) system that is capable of acquiring 8,000 PIV images/second. In the current proposal, they propose to use this new instrumentation to study the characteristics of a turbulent jet, more specifically, the temporal structure and evolution of eddies and their relationship to the generation of subgrid stresses and dissapation. The experiments will consist of issuing a water jet into a co-flowing stream in a water tunnel. The broader impact of this proposal will be to improve our ability to develop better subgrid scale models for the prediction of the characteristics of turbulent flows, and in the training of graduate students in this advance instrumentation technique. Knowledge gained in this research will be useful in the development of 3D cinema-PIV system.